Intelligence Systems in Processes Engineering, ISPE '95

CTS-9423965 G. Stephanopoulos CACHE Corporation ABSTRACT This project is to support travel for eight new faculty and eight graduate students to attend a conference entitled "Intelligent Systems in Process Engineering" to be held in Snowmass Colorado. This is an international conference which has individual as well as institutional representation from both Europe and the Far East. There is also a balance between industry and academia. The conference has nine identified themes, all of which impact on the usefulness of processing systems. The topics include: knowledge-based product and process design, knowledge and CAD in engineering Design and intelligent control as well as topics relating to industrial applications.